Shared-memory Metacomputing

The focus of this research is on developing techniques and algorithms that
will allow idle workstations to be opportunistically exploited for parallel
and distributed shared-memory applications. The target environments range
from local-area networks (LAN's) to wide-area networks (WAN's). The central
challenges are competition from other applications for workstation and
network resources, load imbalance arising from differing system speeds, and
heterogeneity.

The intent is to design and build as transparent a system as possible. Such
a system will need new methods of deriving dynamic sharing and processor
capacity information online, new load-balancing and thread-migration
heuristics that minimize both communication and load imbalance in dynamic
environments, and easy-to-use API's that will provide the type information
needed to address heterogeneity. The end result of this work will be a set
of techniques, policies, and code that will allow shared-memory
applications to be transparently migrated across a set of non-dedicated
workstations. In allowing otherwise-unused resources to be exploited by
this new application domain, this research will significantly expand the
value of incrementally-deployed sets of workstations.